Receptor Proteins in Vertebrate Olfaction

The long term objective of Dr. Price's research is to understand the mechanism (or mechanisms) by which chemicals in the air stimulate olfactory receptor cells in the nose, thus leading to odor perception. One mechanism suggested is that the odorous chemicals (odorants) bind to specific receptor proteins on the surface of the cells, which causes the cells to generate nerve impulses. This research project will test the hypothesis that certain proteins isolated from the tissue containing olfactory receptor cells are, in fact, receptor proteins and a determination of the protein characteristics will be made. Isolating the proteins by affinity chromatography takes advantage of the fact that they bind certain odorants. Odorant analogues are linked to solid supports and made into columns through which tissue extracts are passed. Proteins that bind odorants often bind the analogues as well. The analogues are linked to the solid support, thus these proteins are separated from the thousands of other chemicals in the extracts. The proteins are recovered by washing the solid support-analogue-protein complex with concentrated solutions of the analogue. Binding an odorant does not prove that a protein is a receptor. This problem is approached by preparing antibodies that interact with different parts of the protein (so-called monoclonal antibodies). The antibodies are applied to olfactory receptor tissue and responses to odorants are measured. If the protein is a receptor, some of the antibodies should prevent it from binding the odorant and, therefore, inhibit responses. Two proteins have been isolated from olfactory tissue and subjected to this test. The results suggest that they are receptors. Receptor proteins are hypothesized to comprise a family of similar proteins. Some antibodies against each of the two proteins mentioned inhibit responses to several unrelated odorants. This finding is consistent with the stated hypothesis; the antibodies probably interact with part of the protein that is common to all receptor proteins. The two proteins are indistinguishable by electrophoresis, which estimates protein size on the basis of the rate at which it moves in an electric field. This, too, is consistent with the hypothesis that receptor proteins comprise a structural class. These studies are intended to elaborate upon the investigations described above by seeking and comparing additional proteins. Samples will be provided to other investigators for use in their experiments on olfactory mechanisms.